Percolation Model of Phase Transitions in the Central Nervous Systems during Perceptual Information Processing

EIA-0130352-Robert Kozma-University of Memphis-Percolation Model of Phase Transitions in the Central Nervous Systems during Perceptual Information Processing

The proposed research will explore the close link between pattern-based information processing using dynamical memories and percolation phenomena. Percolation models have been used to analyze a wide range of processes in physics and electronics, and in biological and ecological systems. In the last decade and a half, many variants of the standard percolation models have been studied. In particular, there has been much work on the family or processes known as bootstrap percolation. Computer experiments performed by physicists have suggested interesting non-trivial models. The solid mathematical theory of percolation in lattices to lay down the foundations of dynamical memories and the related phase transitions will be applied.